In Principle, In Practice: The Second Annapolis Conference on Museum Learning

The Institute for Learning Innovation (ILI) requests support to conduct the second conference on museum learning, "In Principle, In Practice," following their successful NSF-funded conference of a decade ago entitled "Public Institutions for Personal Learning: Establishing a Long-term Research Agenda." The goals of the conference and two related publications are to advance shared knowledge within the field about current research concerning learning in and from museums, to promote effective practice, to identify and disseminate research-based best practices for developing evaluation frameworks and to enhance the infrastructure for research and education. The four components of the project include: 1) a special supplement of the journal "Science Education," 2) a two-day national conference, 3) a post-conference white paper on informal science learning, and 4) a post-conference book on research-based understandings of learning from museums.